2005 Mid-Atlantic Regional Meeting (MARM) of the ACS: Symposium on Solid State and Materials Chemistry; Piscataway, NJ; 5/22-25/05

Interest in solid-state chemistry has undergone explosive growth in recent years due to the broadly based recognition of the technological importance and scientific challenges involved in the discovery and study of new materials, and due to the influx of scientists from other disciplines who see the opportunities for performing exciting research in this area. The goal of this conference is to facilitate collaborations and information exchange across a broad spectrum of researchers with interests in solid-state chemistry areas that include synthesis, crystal growth, electronic and magnetic properties, and nanomaterials, and related areas of materials nanoscience and engineering research and education. The NSF funds will be used primarily to support the participation of students, post-doctoral scholars, and early career faculty, as well as invited speakers.

%%%

The Solid State Chemistry community continues to have direct impact on technological advances of high significance to society by designing new materials for energy, electronics and photonics, including the design and construction of novel 'biosolids' such as biomolecules in sol-gels as sensor materials.